Participant Support Costs: Chapman Conference on Crustal- Scale Fluid Transport: Magnitude and Mechanisms

This action provides partial conference participant support for a Chapman Conference "Crustal Scale Fluid Transport: Magnitude and Mechanisms", Thomas Torgersen, Convener, to be held June 4-8, 1990 at Snowbird, Utah.